CISE Research Instrumentation: VLSI Design for Test Instrumentation

Verification and logic simulation systems shall be developed within this undertaking and dedicated to projects involving VLSI design-for test. Individual projects include: * Diagnostic chip for IEEE Standard 1149.1 boundary-scan boards. * Self-test using MISR and parallel shift register sequence generator. * Burst-error correcting and self-repair ROM. * Test by approximation of Boolean function system.